MRI: Acquisition of an Illumina MiSeq for Education and Research

An award is made to Villanova University to acquire a next-generation sequencing platform
focused on the Illumina MiSeq instrument. This project will support high-impact research
programs that span the disciplines of Biology and Biochemistry, and will provide graduate and
undergraduate students with hands-on genomics experience using leading-edge technology.
Villanova University is a primarily undergraduate institution committed to recruiting and retaining
students from underrepresented groups and disadvantaged backgrounds, and students of color
accounted for more than 20% of full-time students in 2013. The University also has an impressive
retention record, with 6 year graduation rates above 85% for all ethnic groups as of 2013. Ready
access to cutting-edge sequencing technology, and to the interdisciplinary genomics and
bioinformatics approaches it facilitates, will support the Biology and Chemistry departments in
their efforts to attract students from underrepresented groups to STEM careers. This equipment
will allow the transformation of undergraduate and Masters genomics education at Villanova, and
will be a centerpiece of a new course in genomics. Many Villanova students go on to attend
professional schools or Ph.D. programs, and exposure of students to this technology will prepare
them for the science and medicine of the future. The PI and co-PIs have an extensive record of
mentoring students, including students on peer-reviewed publications, and preparing students for
acceptance to top graduate programs, and the MiSeq platform will advance this student-directed
research.

The MiSeq platform will advance the research of laboratories with diverse interests that include
phylogenomics and phylogeography, evolution and speciation, microbial ecology in response to
changing environmental conditions, and the study of bacterial pathogens. This technology will be
routinely used in the immediate future by at least 5 research groups in 4 main research areas:
1) Deep sequencing of the mRNA and small RNA transcriptomes will address fundamental
questions about how genes are regulated to control responses to stress, nutrient
availability, and hormone signaling, and to direct cellular growth and development. These
methods will also support investigation of how gene regulation and nutrient signaling are
shaped by evolutionary forces.
2) ChIP-Seq and RNA-seq methods will be used to understand changes in transcription and
identify transcription factor binding sites in fungal and bacterial species.
3) Targeted sequencing of genomic DNA will be used to resolve uncertainties and increase
the resolution of phylogenetic relationships in a variety of squamate (reptile) taxa. The
results of these experiments will have important impacts on conservation efforts for these
groups, and will advance our understanding of the forces that drive evolution and
speciation.
4) Sequencing of both RNA and DNA will be used to investigate soil microbial populations,
allowing researchers to address how changes in microbial communities impact plant
growth and nutrient cycling in the face of climate change and nutrient pollution.